Models in Mathematical Biology: A Feedback Perspective

De Leenheer
Recent advances in the life sciences have been aimed at
developing and analyzing mathematical models for complex
biological systems. This has been triggered by the need for
knowledge of their long term behavior. Moreover, a better
understanding of these systems might lead to insights in the
underlying mechanisms, which are usually much more complicated
and less well understood than in the physical sciences. An
in-depth analysis sometimes reveals unsatisfactory behavior, e.g.
extinction of a certain species or -- at the opposite end of the
spectrum -- persistence of an infectious disease, and require
appropriate modifications. In this project the investigator uses
control theory in both analysis and possible modification of the
behavior of biological models. The main idea is to consider these
models from a feedback perspective -- provided this is possible
of course --, which is a central topic of interest in control
theory. It is argued that certain biological (sub)systems are
actually feedback systems. Two examples are studied from this
point of view. The first is the chemostat model with crowding
effects, while the second concerns certain classes of
predator-prey systems. Stability issues are of primary concern in
this study. A second part of the work is devoted to control (or
modification) of the behavior of chemostat models with possibly
multiple resources. The novelty of the approach lies in the way
the control is implemented, by means of feedback control. The
very principle of this type of control is that the control action
is based on the state of the system. The usual strategies
appearing in the literature consider constant controls leading to
bifurcation analysis or control signals that depend only on time
-- but not on the state of the system.
Many biological systems are under close examination these
days. The human genome project, infectious diseases such as AIDS,
the flu, or even those caused by a bio-terror attack are but few
of the compelling examples. Usually these systems are very
complex and hard to understand, let alone control. The aim of
this project is to use the perspective of control theory in
dealing with these problems. Ideas from control theory have been
very successful in applications in more traditional areas.
Chemical and nuclear plants, airplanes, vehicles and satellites,
robots and audio-visual equipment are nowadays equipped with
computers controlling the smooth operation of the specific
application. The question is whether control theory can
contribute to rapid developments in the biological sciences. As
an example, consider a biological system in which a number of
organisms compete against each other. A basic question is whether
or not the species survive. Depending on the application one
would like the answer to this question to be yes (for example if
some of the species are endangered) or no (for instance if one of
the species is a malignant virus). Sometimes the answer turns out
to be no where a yes is desired or vice-versa, and then the issue
becomes whether this can be modified by suitably manipulating the
system. This type of problem is central in control theory. The
lessons learned in the areas mentioned above should prove
valuable in a biological setting.